RUI: Effect of Heat Shock on Plant Secretory Cells

This is an RUI project to study the heat shock response of higher plants. Specifically, the study will involve characterizing endoplasmic reticulum membranes during heat shock and post heat shock periods. The project could provide insights into regulatory mechanisms behind heat shock.